Doctoral Dissertation Improvement Grant: Agricultural Intensification and the Emergence of Complex Societies on the Taraco Peninsula, Bolivia

Under the supervision of Dr. David Browman, Maria Bruno will investigate the
process of agricultural intensification and it role in the development of early
polities during the Formative Period (1500 B.C. - A.D. 500) on the Taraco
Peninsula, Bolivia. The Taraco Peninsula is located in on the southern shores
of the Lake Titicaca Basin in the Andean South America and previous
archaeological investigations here suggest that the first regional polity, the
Taraco Peninsula Polity, emerged c. 250 B.C. Clarifying the development of such
early regional polities is necessary for understanding the emergence of the
basin's first state-level society, Tiwanaku, c. A.D. 500.
Several researchers suggest that increased agricultural production played a
central role in the development of these early polities and the Tiwanaku
state. It is hypothesized that emerging elites created an economic surplus by
orchestrating the increased production of agricultural goods. Current
understanding of agricultural intensification in the Lake Titicaca Basin,
however, is based only on studies of settlement patterns, stone tool use, and
paleoethnobotanical analysis of crop plants. Although these studies document
increasing agricultural production throughout the Formative, available data
sets are too coarse-grained to verify postulated links between changes in
agricultural production and concomitant socio-political developments. Bruno
proposes to resolve this issue by conducting an ethnobotanical study of present-
day agricultural practices on the Taraco Peninsula, Bolivia. This study will
aid in the analysis and interpretation of archaeological plant remains from two
Formative period sites, Kala Uyuni and Yanapata, from the same region.

Through 13 months of ethnobotanical fieldwork among Aymara communities on the
Taraco Peninsula, including interviews, participation in agricultural
activities, and farmer-guided plant collections, Bruno will create a
comparative floral collection that reflects local agricultural production. The
ethnographically derived comparative collection will not only provide data
necessary for the identification of archaeological plant taxa, but also will
furnish corollary data on human activities that create observable patterns in
plant morphology and ecology. These data will aid in the analysis of archaeological plant remains recovered from the Taraco Archaeological Project's excavations at Kala Uyuni and
Yanapata, directed by Drs. Christine Hastorf and Matthew Bandy. Using a
combination of paleoethnobotanical analytical techniques, Bruno will track the
frequency of all plant taxa through time across different archaeological
contexts. In particular, crops and weedy plant taxa will be analyzed to
elucidate the timing and character of Formative period agricultural
intensification. AMS dating of carbonized plant remains will allow precise
comparison of agricultural change with documented climatic and socio-political
changes. This integrative approach will permit Bruno to clarify the role of
agricultural intensification in the development of the Taraco Peninsula Polity,
as well as contribute to more general anthropological theories of agricultural
intensification and the emergence of complex societies.